The Relativistic Optical Model at Intermediate Energies (Physics)

The proposal is to continue work on a relativistic treatment of nuclear reactions. Elastic and inelastic scattering of nucleons, antinucleons, and mesons will be considered. Attempts will be made to analyze experiments to find scalar and vector form factors, for neutrons as well as protons.